Large Scale Atmospheric Dynamics

This project addresses two distinct dynamical issues. The first explores the mechanism of excitation of intra-seasonal disturbances in the extra-tropical atmosphere, entailing remote forcing, local amplification and regional non-linear upscale cascade in the atmosphere, while the second, divided into two phases, are as follows: (a) the excitation of baroclinic wave packets which are constituent disturbances in storm tracks, and (b) to delineate the corresponding equilibration non-linear dynamics.

In terms of broader impacts, the research has the potential to advance our understanding of the dynamical processes that excite intra-seasonal disturbances, and is likely to be useful in developing numerical models (for example) to improve forecasts of intra-seasonal disturbances. Such forecasts serve to inform a variety of environmental and societal management and policy decisions, such as in agriculture and water resources.